U.S.-Germany Cooperative Research: AGN Variability Using the HET

9815168
Bash
This award supports the PI's postdoctoral student, William Welsh, in a collaboration with Wolfram Kollatschny of the University Observatory at the University of Goettingen, Germany. The research focus is on Active Galactic Nuclei, which are of great interest to astronomers because they are the most energetic sources of energy yet discovered in the universe. Current explanations of the small size and high and highly variable energy output of these nuclei require an understanding of accretion processes onto extremely massive black holes. Such processes are poorly understood, and the U.S. group will collaborate with the German group to analyze the latest data from the new Hobby-Eberly Telescope in Texas. For this type of data-intense observations, the team approach has proved to be particularly successful, and the German group has unique expertise in the analysis of data from active galactic nuclei.